Improving Electron Microscopic Study in the Undergraduate Curriculum

This project has provided matching funds to purchase a combined transmission and scanning electron microscope (TEM/SEM) to provide enhanced opportunities for students to study and experiment at the cellular level. Central to this development is a course in The Theory and Techniques of Electron Microscopy, designed to familiarize students with the principles of TEM and SEM design and operation. Through intensive laboratory instruction, students gain "hands-on" experience in TEM and SEM techniques and operation which then is applied to selected research projects. The new TEM/SEM enriches laboratory exercises at all levels of the biology program by focusing attention on the cellular aspects of organismal structure, and provides new opportunities for student independent and honors research in Biology.